Market-Based Systems for Workflow Scheduling

The basic problem addressed in this proposal concerns how business units that rely on and share common service units within the organization can communicate priority of work to these units - a problem of managing dependencies among competing production units. The PIs intend to develop develop a general theory of market-based control for such complex production systems, and to test its advantages and limitations as compared with more traditional production and resource scheduling methods. Theoretical issues to be addressed in the proposal include analyses of the properties of equilibria obtained via the system as well as the nature of the convergence process.